Calculus Taught with a Laboratory Component

Students in all the calculus courses are using the calculus laboratory equipped with HP28S calculators and IBM PS/2 computers running Derive. These students are able to improve their intuition about the major underlying concepts and are dealing with more realistic applications of calculus. The institution will contribute an amount equal to the award.